CAREER

CCR-0093349

ABSTRACT

This project investigates aspects of reliable communications for very
different types of network variability.
The first part of the project is concerned with capacity and robustness of
networks to permanent failures such as removal of a link or node. The
approach in this project moves away from a pure graph-theoretic approach,
based purely on routing, to consider network capacity using an algebraic
framework. Capacity is considered as the characterization of the set of
connections that can be supported by a network in which the nodes are not
only capable of traditional routing functions, but can also perform
processing of the data that arrives to them. Such processing is considered
as a code over the network. Coding is also applied to recovery to maintain
certain connections in a network even after failure of a portion of the
network, for instance after the disappearance of a link in the network. The
second part of the project considers robustness in channels where fading
varies over both time and frequency, especially over ultra wide frequency
bands. The goal of this part of the project is to establish theoretical
results that relate capacity, peak power, energy, bandwith and probability
of error in such a way as to characterize the practical achievable
performance in wide band wireless systems.

The first part of this project investigates the reliability of networks
under normal and failure conditions when coding is used to ensure
continuity of connections. This project shows that traditional methods of
recovery in networks, such as rerouting, are subsets of network coding and
establishes coding methods to increase the realibility of networks under
failure conditions. Moreover, the projects investigates the issue of network
management, where network management represents the information needed to
modify the behavior of the network, defined as the code of the network, in
response to failures. The algebraic approach taken in this project allows
some characterization of the fundamental limits of the number of bits
required to effect changes on the network code and of the portions of the
network that require knowledge of failures. The second part of the project
considers capacity of very wide band channels and the applicability of
different types of signals and codes to achieve performance at or near the
theoretical maximum. In particular, it explores to what extent very high
peak power symbols, which are known to achieve capacity in the limit of very
large bandwidths, are necessary to achieve capacity. The project also
explores the ranges of bandwidth in which ultra-wideband results are
achievable. This work bridges the theoretical limits of the channel
(capacity) with the applicability of the techniques that achieve capacity by
providing an explicit bound to the probability of error in terms of rate,
bandwidth and peak power of the signal. Finally, the project consider the
applicability, in the range of moderate to large bandwidths, of traditional
spread spectrum approaches, such as direct-sequence code-division multiple
access, that perform poorly in the limit of very large bandwidths.